Partial Funding for a Task Group of the Space Studies Board and Committee on Solar and Space Physics

ABSTRACT ALLEN, M. National Academy of Sciences AST-9618081 The Space Studies Board of the National Academy of Sciences will assemble a task group on ground-based solar research. The study will analyze existing capabilities and projected trends in ground optical and radio observational facilities and other research infrastructure elements. The study will require approximately 12 months. A final report will be delivered by July 1, 1997.